International Symposium on the Locus Coeruleus, Orcas Island, WA

The locus ceruleus is one of the most fascinating structures in the brain. Named the "blue spot" by anatomists because it is visible to the naked eye in post mortem material, it finally acquired a function thirty years ago when it was discovered that all the adrenergic fibers in the brain and spinal cord originate from in or near this spot. That makes the locus ceruleus the central component of the sympathetic nervous system, regulating states of conscious and the body's response to unusual challenges. This NSF award will enable 10 young scientists to attend an interdisciplinary international conference on this structure. At this conference scientists from many diverse disciplines whose work is relevant to the locus ceruleus will share their findings. The results will be published in a book that will serve as a resource for scientists unable to attend the meeting.***//